Conference: International Symposium on the Physics and Chemistry of Ice, Hanover, NH, August 26 - 30, 1996

9530356 Baker This award provides partial support for the 1996 International Symposium on the Physics and Chemistry of Ice. The Symposium will be held at Dartmouth College from August 26th to August 30th, 1996. This conference is the largest (approximately 150 participants) international meeting on fundamental research in ice. The previous meeting was held in Sapporo, Japan in 1991, and the last meeting in the United States was held in 1982. The research topics at the Symposium span a range of disciplines including such areas as physics, chemistry, geophysics, geochemistry, and glaciology. The results of the Symposium will be published and will be of immediate use in a range of scientific and engineering fields. %%% This award provides partial support for the 1996 International Symposium on the Physics and Chemistry of Ice. The Symposium will be held at Dartmouth College from August 26th to August 30th, 1996. This conference is the largest (approximately 150 participants) international meeting on fundamental research in ice. The previous meeting was held in Sapporo, Japan in 1991, and the last meeting in the United States was held in 1982. The research topics at the Symposium span a range of disciplines including such areas as physics, chemistry, geophysics, geochemistry, and glaciology. The results of the Symposium will be published and will be of immediate use in a range of scientific and engineering fields. ***